Remote Sensing Teaching Lab for the Integration of Remote Sensing, GIS and Automated Cartography into Natural ResourceManagement

This award provides funds to the Geography Department at Utah State University to help purchase equipment for the establishment of a Remote Sensing Teaching Lab for undergraduate training in digital image processing and automated mapping. This award will allow the Principal Investigators to: 1. Provide training in state-of-the- art remote sensing and GIS software and hardware to USU undergraduates. 2. Create laboratory exercise which stimulate the development of new applications of remotely-sensed and GIS data bases for resource management. 3. Provide laboratory facilities to encourage undergraduate development and interaction between disciplines. and 4. Improve undergraduate understanding of image processing software logic and the students ability to create new algorithms to address specific land management problems. The grantee is matching this award with non-Federal sources.